Mathematical Sciences: Index Invariants for Operator Range and Commuting Tuples of Operators on Hilbert Space

Professor Carey will continue his investigation of index invariants for operator ranges, a far-reaching extension of the classical index theory for Fredholm operators. He will also pursue a project in multivariable spectral theory having to do with the coherent sheaf associated with the Koszul complex of a commuting n-tuple of operators. This sheaf, after it has been filtered through the algebraic topology of the complement of the essential spectrum of the n-tuple, yields an invariant whose properties Professor Carey will study. This is mathematical research in the theory of operators on Hilbert space. Operators may be thought of as enriched numbers, obeying the same laws of arithmetic as ordinary numbers with two notable exceptions: multiplication of operators depends upon the order in which the factors are taken, and not every non-zero operator has an inverse. For finite-dimensional operators, i.e. square matrices of numbers, these phenomena account for the richness of the subject of linear algebra. In the infinite- dimensional setting of Hilbert space, there is furthermore the phenomenon of non-zero index, of operators obeying the laws of arithmetic for numbers except for error terms that are small in an appropriate sense and that contain important information about whatever situation gave rise to the operators. Index theory in this sense is the underlying theme of Professor Carey's project.